MRI: Track 1 Acquisition of a Multi-Material Vat Photopolymerization 3D Printer for Interdisciplinary Applications Including Energy Storage, Electronics, and Biomedical

This Major Research Instrumentation (MRI) grant provides funding for the University of Texas at El Paso to acquire a unique multi-material high-resolution 3D printer capable of fabricating complex composite structures from polymers, ceramics, and metals. This advanced 3D printer is the first of its kind in the region and only the third in North America. This advanced equipment will allow researchers and students to create complex structures that combine multiple materials, enabling innovative projects such as next-generation batteries and fuel cells, engineered protective materials for safety and defense, multi-material electronic circuits, and bio-inspired medical devices. By providing hands-on experience with cutting-edge technology, the project will train over 150 undergraduate and graduate students annually. The system will also foster collaborations with local industry, community colleges, and K-12 education programs, expanding access to advanced manufacturing technologies and strengthening the regional workforce. This project will strengthen United States leadership in advanced manufacturing and innovation and enhance UTEP’s capacity to contribute to technological advancement, economic growth, and the development of a diverse and highly skilled STEM workforce.

The project will acquire a multi-material high-resolution 3D printer capable of fabricating complex composite structures from polymers, ceramics, and metals. The system enables free-form printing of multi-material designs using minimal material quantities, supporting iterative development of custom materials and graded composites. Research activities enabled by this printer include: (i) advanced 3D-printed energy storage devices, such as batteries and solid oxide fuel cells; (ii) metal-ceramic composites for automotive components, protective armor, and radiation-shielding structures; (iii) multi-material substrates and circuits for electronic and electromagnetic applications; (iv) graded shape memory polymer composites; and (v) biologically inspired multi-material structures for biomedical research. The printer will support interdisciplinary research across departments and institutions, enhance student training in additive manufacturing, and position UTEP as a regional and national leader in multi-material 3D printing. Its capabilities will also attract collaborative research partnerships, facilitate publications and proposals, and contribute to innovative solutions in energy, electronics, and biomedical fields.